The Nebraska Science Enhancement Project

9453944 O'Leary, The Nebraska Science Enhancement Project This 48 month project offers a four-year series of interactive satellite TV sessions on the subject of water. The Satellite Educational and Environmental Research program already exists and is one of the ways used in a similar project on radon to reach the large number of teachers in remote areas of the state. The goal of the project is to reach 100 teachers and 10,000 students in each year of the program. The water project is organized around statewide experiments in which teachers and their students make environmental measurements of water quality and quantity in their communities. This data extends the Nebraska resource base for water policy decisions. Community involvement includes presentations by school groups and community participation in water measurement. The Regional Coalitions of the SSI assists with recruitment, management of the downlink sites, and dissemination of resources. This project is an expansion of a pilot conducted during 1993-94. Cost sharing is estimated at 48%. ***